Simplifying Algebraic Numbers and Algebraic Functions

Computer algebra software packages can compute exact solutions for
many mathematical problems. However, the answers that such software
packages return are often not presented in their simplest form,
especially when they involve algebraic numbers or algebraic functions.
The goal of this project is to develop algorithms that can reduce
mathematical expressions to their simplest form. The focus will be
on expressions that involve algebraic numbers or algebraic functions.

Computer algebra software can be very valuable for research and
education. However, such software often produces large complicated
answers. This poses a difficult problem for the application of computer
algebra in education, but also in research, because it can be difficult to
reduce a complicated expression to its simplest form. Doing such reduction
automatically will make computer algebra systems easier to use.